MRX Experiment, Study of Fundamental Physics of Magnetic Reconnection in a Laboratory Plasma

9732538
Yamada
This project is concerned with the fundamental physics of magnetic reconnection in laboratory plasmas. The primary goal is to provide a comprehensive analysis of the local and global characteristics of the reconnection phenomenon and to compare the experimental results with existing theory.